CAREER: Development of a New Program in Integrated Analog Systems Design at Northeastern University

The focus of this Career Development plan is the development of a new broad-based program in the design of integrated analog systems at Northeastern University. The research component of this plan involves the development of analog processing circuits to be used in integrated circuits containing arrays of sensors or display elements. The main focus of this research is on applications related to electronic imaging. The two main thrusts are; (1) to develop high quality imaging arrays with CMOS technology and (2) to devise focal-plane computational imagers for extracting useful information from the image data. The functions performed by the focal plane processors, which include temporal and spatial differencing and spatial filtering, will have applications in fields ranging from image compression and enhancement to machine vision problems such as tracking and inspection. The educational component of this plan addresses the need to interest and train more engineers in the field of analog design. The major initiatives of this plan include developing an extended analog design project for second and third year undergraduates; incorporating more undergraduates into on-going research; creating a seminar series bringing outside speakers on campus to increase students' awareness of the importance of analog design in real world systems; and developing an advanced graduate course in analog systems aimed both at our graduate research students as well as at engineers in industry who need to deepen their understanding of design principles and techniques.